Upgrade and Acquisition of NMR Instrumentation

This award from the Academic Research Infrastructure Program will help the Department of Chemistry at the University of Arizona acquire a 500 MHz spectrometer which will be used in the following research investigations: 1. Synthesis and Solution Structure of Porphyrins, Metalloporphyrins, and Heme Proteins; CP/MAS NMR of Diamagnetic and Paramagnetic Porphyrins; and 57Fe NMR of Model Hemes and Heme Proteins. 2. Multinuclear NMR Structural Studies of Visual Proteins. 3. NMR Studies of Peptide Hormones and Neurotransmitters. 4. Polymer Design and Molecular Topology. 5. NMR Investigations of Hydrodenitrogenation (HDN) Catalysts. 6. Conformational Dependence of 13C Chemical Shifts in the Solid-State NMR Spectra of Peptides. 7. Solid-State 95Mo NMR Studies of Molybdoenzyme Models. 8. NMR Studies of Supramolecular Assemblies and Their Components. 9. New Methodolgy for Glycosides: Glycosphingolipids and O-Linked Glycopeptides. 10. NMR Structure Determinations of Natural Products and New Polycerams and Block Copolymers. 11. Probing the E and F Subsites of the Lysozyme Binding Cleft With N-Acetylglucosaminyl Muramic Acid. 12. Organic Polymer Chemistry. %%% Nuclear Magnetic Resonance (NMR) Spectroscopy is the most powerful tool available to the chemist for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in areas such as polymers and catalysis, and in biology.